Twenty-Sixth Southeastern-Atlantic Regional Conference on Differential Equations

This award furnishes travel support for junior researchers participating in the Twenty-Sixth Southeastern-Atlantic Regional Conference on Differential Equations, held in October 2006 at the University of North Carolina, Greensboro.

This meeting provides an opportunity for interaction between experts and junior researchers in important areas of research in differential equations. The conference represents a valuable opportunity for postdocs and students to broaden their understanding and to learn about open problems.

Conference web page:
http://www.uncg.edu/mat/searcde/